Collaborative Research in Operator Theory on Holomorphic Function Spaces

ABSTRACT. Professor Bourdon and his collaborator Joel Shapiro of
Michigan State University will investigate problems arising from the
interaction between the modern theory of linear operators and the
classical theory of analytic functions. The problems to be studied involve
norms, decomposability, and numerical ranges of composition operators as
well as the chaotic behavior of both composition operators and operators
commuting with backward shifts. Insights and tools developed during the
course of the project will be applied to other classes of linear operators
on Hilbert and Banach spaces.

Many of the differential and integral equations that physicists and
engineers use to model physical processes may be viewed as linear
operators on spaces of functions. This viewpoint, pioneered by David
Hilbert, led to the development of function-theoretic operator theory,
which is the branch of mathematics inspiring the problems that are the
focus of Bourdon and Shapiro's project. A number of these problems concern
the notion of numerical range of a linear operator, an object that has
relevance to quantum physics and that has proven useful to engineers in
determining the stability of certain control systems. Other problems
relate to the chaotic behavior of linear operators. That linear operators
can give rise to chaotic systems is a relatively recent discovery which
has led to unexpected connections between operator theory and dynamical
systems. The idea of decomposability--the study of how to break a
complicated linear system up into simpler ones--has been shown to have
surprising connections with such chaotic behavior. The final group of
problems involves norm calculations for composition operators. The norm
of an operator measures how much the operator can stretch the unit ball of
the space on which it acts. Computer experimentation should yield
insights and intuition concerning both composition-operator norms and
numerical ranges. Through such experimentation, undergraduate students at
Washington and Lee University will be given an opportunity to participate
in the project. The training and research experience provided to these
students by the project contribute to its human-resources impact.